Purchase of Fluorimeter

This grant provides for partial funding of the acquisition of a fluorimeter to be used in studies of physical-chemical studies of macromolecules, spectroscopic properties of lanthanide complexes, and luminescence studies of inorganic crystals.